Multi-functional analytical and sensing devices based on graphene encapsulated noble metal nanoparticles and their nanowire-based heterostructures

Multi-functional analytical and sensing devices based on graphene encapsulated noble
metal nanoparticles and their nanowire-based heterostructures
PI: Nitin Chopra, Metallurgical and Materials Engineering, The University of Alabama, Tuscaloosa.
This research endeavor focuses on novel multi-functional and multi-component analytical and detection
devices based on graphene encapsulated noble metal nanoparticles (GE-NMPs). Fabrication of a
continuous and non-porous graphene shell offers a unique way to stabilize noble metal nanoparticles
(NMPs) lending multi-functionality and unique properties to these hybrid nanomaterials. Such
nanomaterials are of enormous importance for homeland and border security, sensor industry, and
analytical device technology.
The research involves studies on the growth of GE-NMPs and their nanowire-based heterostructures
using a chemical vapor deposition (CVD) process. The information will be broadly applicable to many
materials systems that have an ability to catalyze carbon growth and will be a notable advancement in the
area of novel graphene-based nanomaterials and devices. These materials are highly robust and can be
readily functionalized for further applications. The approach is to fully utilize the functions of the individual
components (graphene and noble metal nanoparticle) to locate, detect, separate, and assemble chemical
species with enhanced signals. In addition, hybrid nanomaterials will be vital in realizing advanced
engineering applications, including, chemical and biological sensors and novel spectroscopy substrates
that integrate a uniquely heterostructured nano-electromechanical system (NEMS). These devices will
have high resolution, chemical selectivity, improved sensitivity and detection limits, reversibility, and
robustness. The research program is multidisciplinary and has strong fundamental and technological
components allowing students to work and gain experience in cutting edge nanotechnology research.